Molecular and Cellular Biology Equipment for Ursinus College

As part of an overall curriculum revision and capital equipment improvement program to enhance laboratory experiences with modern methodologies, new equipment is being integrated into all levels of the curriculum. An ultracentrifuge and liquid scintillation counter will be purchased to be used in both introductory and upper division laboratory courses and in student research. These instruments will enable the students to perform experiments not now possible, and to have hands-on experience with the tools of molecular and cellular biology in a wide variety of courses. The college will provide 50% matching funds.